Nonlinear Dynamics of Two Extended Systems: (i) Nonlinear Dispersive Waves, (ii) Primary Visual Cortex

McLaughlin
9971813
The investigator and his colleagues study complex nonlinear
dynamics for two extended systems: (i) Nonlinear Dispersive Waves
and (ii) Primary Visual Cortex. Project (i) concerns the random
behavior of nonlinear waves -- specifically chaos for
near-integrable soliton partial differential equations. For these
equations temporal chaos is now rather well understood; however,
far less is known about the more severe behavior of
spatial-temporal chaos. Both its onset, as well as the
description of its macroscopic temporal evolution, are studied
through a combination of asymptotic averaging and numerical
experiments. Project (ii) is to develop a theoretical and
computational model of the primary visual cortex (V1). A point
neuron model of V1 is developed, with a realistic coupling
architecture between cortical neurons. The model is constrained,
whenever possible, by physiological and anatomical measurements.
It has a multi-layered architecture and focuses upon dynamical
behavior of the cortical network.
Nonlinear systems can have solutions that behave randomly,
even though the system itself is strictly deterministic. When
these systems describe waves that are extended spatially, this
chaotic behavior is not well understood today. Such extended
waves are prevalent throughout nature -- including the turbulent
behavior of air masses and ocean currents that influence both
weather and climate. Clearly, the prediction of dynamical
behavior for such chaotic waves has fundamental importance. The
investigator carries out mathematical studies of fundamental
chaotic behavior for idealized nonlinear wave equations. The
brain is an extremely complex extended system whose dynamical
response to stimulation is a central problem for modern neural
science. He and his colleagues, an interdisciplinary group of
neural scientists and mathematicians at New York University, are
developing a computational model of area V1 of the Primary Visual
Cortex of the Macaque monkey, the first cortical region along the
visual pathway at which cortical processing of visual information
is thought to occur. Their numerical experiments are designed to
simulate specific laboratory observations of V1 -- with the
results of both numerical simulation and laboratory experiments
under continual comparison. It is easier to identify possible
mechanisms for cortical processing through numerical experiments
than in the laboratory experiments. Such interdisciplinary
collaborations between experimental biologists and computational
applied mathematicians unveil how the cortex processes visual
information, and will lead to a deeper understanding of the
functioning of the brain. The project is supported by the Applied
Mathematics program in the Division of Mathematical Sciences and
by the Computational Neuroscience program in the Division of
Integrative Biology and Neuroscience.